Oceanographic Technical Support Aboard U.S. Academic Research Fleet

This project supports shared-use oceanographic technical services aboard the research vessels Roger Revelle, Sally Ride, and Robert Gordon Sproul, vessels operating as part of the U.S. Academic Research Fleet. These technical services help maintain reliable access to scientific instrumentation and high-quality oceanographic observations needed to study ocean circulation, marine ecosystems, air-sea interactions, seafloor processes, and other ocean systems. The project strengthens shared research infrastructure aboard fleet vessels while supporting modern ocean science, workforce development, and research and education activities relevant to ocean observation, environmental prediction, coastal resilience, and stewardship of marine resources.

The project provides shipboard technical support, maintenance, calibration, operation, and management of shared-use scientific instrumentation supporting research conducted aboard the vessels. Technical personnel support scientific missions through instrument preparation, deployment support, data collection assistance, troubleshooting, maintenance of observational systems, and operation of specialized scientific equipment used by researchers from institutions throughout the United States. These activities help maintain the technical infrastructure necessary to support a broad range of oceanographic research conducted aboard Academic Research Fleet vessels and ensure continued access to reliable scientific capabilities and high-quality observational data for the research community.